Go-Betweens and Imperials Networks of Knowledge, 1770-1820

PROJECT SUMMARY

This proposal requests funds to cover travel and accommodation for American participants
in an international workshop to be held at the Teylers Museum, the Netherlands in
September 2006. The purpose of the workshop is to enable participants to present and
discuss their contributions to a collaborative volume of essays that will be published and
made electronically available on the Internet in 2007. Intellectual Merit.
The theme of the overall project, of which the workshop is a part, examines knowledge
production and circulation at a key moment in the development of global scientific,
commercial and political systems. The period 1770-1820 was decisive for the reformation of
imperial projects in the wake of military catastrophe and politico-economic crisis, both
in the north Atlantic and the southern Asian spheres. The conjuncture also notoriously saw
the overhaul of networks and institutions of natural knowledge, whether commercial,
voluntary or organs of state. Both the Industrial and the Second Scientific Revolutions
have been dated to this moment. New and decisive relations were forged between different
cultures’ knowledge carriers. Contributors will consider knowledge movements that escape
simple models of metropolitan center and remote colonial periphery. They will question the
immutable character of mediators and agents in knowledge communication. Instead, they
will explore how experiences of travel, assimilation and expropriation changed both the
bearer of knowledge and the knowledge communicated. A range of knowledges was in play
here: natural history, astronomy, survey science and engineering. So was a range of
mediators: missionaries, entrepreneurs, spies, diplomats and navigators. This projects
aim is to help make a better account of the worldly interaction between the form of
knowledge communicated, the agents of communication and the paths they traveled.
The innovative character of this project has a number of facets. It brings together
historical issues generally treated separately to provide a better understand of the
simultaneous rise of Western industrialization and imperialism. It seeks to demonstrate
that the history of European science needs to be understood as part of an increasingly
global circulation of knowledge, practices and power relations. Methodologically it
replaces oppositional schemes such as Western science versus indigenous knowledge,
rational knowledge versus superstition, elite science versus popularization and pure
science versus applied science with a recognition that interaction and travel necessarily
reshape or reconfigure both the new objects or procedures of knowledge production and the
social structures into which they are introduced. The broader impact of this project can be assessed at various levels. First, the results of the workshop, once edited into a coherent book with a substantial introduction that discusses the overall issues analyzed in its individual essays, will be made available both in hardback and electronic form to insure the broadest dissemination and use possible. The essays will be written with a view toward classroom use at the college
level so as to help broaden the geographical and cultural scope of history of science
courses. Further, current participants are part of a network that is working toward
increasing collaboration between historians of science from the North (Europe and North
America) and the South (especially South America, India and Indonesia).